Point Defect Dynamics and Equilibria by Laser Spectroscopy

Site selective laser spectroscopy will be used to measure the concentrations of different defect centers as changes are induced in the crystal defect distribution by different environmental perturbations. Three parts are proposed in the program. The activity coefficients that describe the nonidealities of defect equilibria in calcium fluoride and lead fluoride will be measured for different ionic strengths and ionic radii of the dopants by measuring the ratio of site concentrations at high dopant levels where nonideality effects dominate and at low concentrations where the effects are negligible. The kinetics of defect aggregation will be measured in calcium fluoride by following the changes that occur in the relative number of defect clusters as a function of the annealing time, temperature, and dopant levels. The experiments will identify the number of dopant ions that make up the individual clusters and the thermodynamic parameters that control the mobility associated with the aggregation. Finally, we will use the same methods that have been employed in the previous work on binary compounds to study the more complex defect chemistry of ternary perovskite compounds. They will probe ions at both cation sites in the perovskites so there will be direct monitors of all the intrinsic defects. The concentrations of the different defects will be measured over the range of different conditions that affect the perovskites and related to microscopic pictures of the defect equilibria that are responsible for the distributions.